Standard Depot Level Maintenance of LC-130 Aircraft

This zero dollar contract with Air New Zealand has been negotiated to provide Standard Depot Level Maintenance (SDLM) on the National Science Foundation's LC-130 aircraft. The aircraft undergo a yearly overhaul, and the ability to have this maintenance performed in Christchurch, New Zealand, will enhance the capability of VXE-6 to accomplish its mission in the Antarctic Program. Since the majority of the yearly flying is done in and around Christchurch and Antarctica, having maintenance capability close to the source of heavy flight operations will allow more flexibility in the scheduling of yearly maintenance. This contract provides aircraft maintenance support to the program and will be administered, including distributions of funds, by the U.S. Navy - Fleet Air Western Pacific Repair Activity in Atsugi Japan. The program manager recommends awarding of this action.